REU Site - Undergraduate Research on Nanodevices

This award provides funding for a 3 year, REU Site on Nanodevices at the University of Arkansas-Fayetteville, under the direction of Dr. William D. Brown. Twelve junior and senior undergraduate students per year will participate in a 10 week summer cross-diisciplinary undergraduate research experience that will initiate a high level of interest to learn nanoscience based on the "teaching through doing" paradigm. It will specifically address the teaching of surface science and quantum theory in the context of nanoscience. In addition, the students will learn to construct an educational framework through an industry-like organized training process that develops their teamwork, communication, and leadership skills. They will also be exposed to the wide range of theory in a classroom environment support the program's experimental studies.